The Use of Extractive Crystallization for Separating Multicomponent Liquid Mixtures

CTS-9220196 University of Massachusetts Ka M. Ng ABSTRACT Research in this project focuses on establishing basic steps for the separation of two- and three-solute mixtures by crystallization. Tetrahedral phase diagrams for a three-solute system include 3 vertices for the pure solute compositions and a fourth for the solvent. These diagrams can be used to design separations processes based on crystallization in which eutectic surfaces are crossed by solvent addition, removal, or stream combination. Experimental work on model and industrially important systems is to confirm new separation schemes, determine optimum operating conditions, and establish guidelines for solvent selection. Combination of extractive crystallization with other techniques will also be explored. Half or more of the cost of producing pharmaceutical drugs and other important chemicals is often attributed to separation and purification. New strategies for crystallization can improve product quality and lower cost for the consumer. 196 University of Massachusetts Ka M. Ng ABSTRACT Research in this project focuses on establishing basic steps f ! !% ! F 1 Times New Roman Symbol & Arial Times Apple LaserWriter II NT LPT3: pscript Apple LaserWriter II NT U D o d , X Z e > " h 1 Nichelle Coward Nichelle Coward